SBIR Phase I: Monolithic CMOS-Integration of Electroplated Copper MEMS Inertial Sensors

The broader impact/commercial potential of this project can lead to a revolution in the consumer
electronics market (mobile handsets, tablets, game consoles and wearables), wherein high performance,
low power, small footprint multisensing (not limited to inertial sensing) platforms with timing devices,
are all directly microfabricated on a common ASIC substrate. Sensor fusion can produce unprecedented
user experiences by using data collected from all sensors and processed using machine learning
algorithms. This can further boost the sensor and timing markets that are expected to exceed $6 billion
dollars by 2017. Moreover, the emergent Internet of Things (IoTs) and wearable markets are expected to
reach $20 billion dollars by 2025, which can induce a rapid growth of such intelligent sensor fusion
market. This can have a tremendous societal impact as wearable devices and IoT systems, interfaced with
mobile platforms, can be used to monitor people’s health, safety and energy consumption. Making these
solutions affordable will make it amenable to low income households not only in the US but also around
the world. It will also enable researchers to attain new frontiers of knowledge such as in digital sensory
systems. The long-term goals are to provide such intelligent sensor fusion solutions.

This Small Business Innovative Research (SBIR) Phase I project seeks to demonstrate wafer-scale
microfabrication of Micro-Electro-Mechanical Systems (MEMS) inertial sensors directly on the
application specific integrated circuit (ASIC) substrates, by using electroplated copper (e-Cu) as a
structural material. MEMS inertial sensors, such as gyroscopes and accelerometers, are pervasively used
in consumer electronics and automotive industries. Current trends are, however, requiring higher device
performance with smaller footprints, wherein multi-degree-of-freedom sensors are integrated on the same
package, to enable new capabilities and user experiences. These requirements can be met by
monolithically fabricating inertial sensors on ASIC substrates, which is complex to achieve with silicon
as a structural material. Using e-Cu, which is currently used for ASIC metal interconnects, as the
structural material, can enable easier routing to implement optimized mechanical structures, smaller
dimensions given the high density of copper, extremely low cost as no wafer bonding is required, smaller
form factors, multiple sensors on a single die, and much smaller parasitics providing low noise and higher
performance. Phase I tasks will be to wafer-scale fabricate and characterize e-Cu gyroscopes and
accelerometers with optimal performance parameters and address any drift problems that could emanate
from structural reliability issues associated with the MEMS elements.